Polyhedral Combinatorics in Representation Theory and Algebraic Geometry

The project focuses on cluster algebras discovered by the
investigator in collaboration with S.Fomin. Cluster algebras are
commutative of a special kind designed to provide an algebraic
framework for the study of total positivity and canonical bases in
semisimple groups and their representations. The investigator studies
structural properties of cluster algebras and their quantum
deformations. This study uncovers unexpected connections with such
diverse subjects as the structural theory of Kac-Moody algebras,
representation theory of finite dimensional algebras, geometry of
moduli spaces, and the theory of superpotentials. One of the main
instruments of the study is polyhedral combinatorics.

This project is motivated by two classical areas of mathematics:
representation theory and the theory of total positivity.
Representation theory is a mathematical approach to studying symmetry;
more specifically, it encodes the symmetry properties of various
physical and biological systems that occur in nature. Total positivity
is a remarkable property of matrices (square arrays of numbers) that
generalizes the familiar notion of positive numbers. Both theories
find numerous applications in physics, chemistry and other sciences,
as well as in other mathematical disciplines. In fact, representation
theory serves as the mathematical foundation of quantum mechanics,
while total positivity is a major tool for explaining oscillations in
mechanical systems. During the last decade, deep connections were
found between the two fields, and the scope of their applications was
greatly extended. This project explores the modern framework of
representation theory and total positivity, with the goal of making
its formalism more explicit and understandable.